VPW: Bio-Behavioral Processes in an East African Pastoral Population (Anthropology)

Data for an analysis of pastoral population dynamics from more than two years of field research (anecological) on the Karimojong of Uganda will be analyzed and prepared for publication, as part of a long-term research project. The study group is a major social and territorial division (Ngisonyoka) of the quarter million Turkana, nomadic livestock herders in northwestern Kenya. The sample, which totals about 10,000 individuals, is based on descent. The data will be organized into 62 master files (all the interview information for each descent-set) and 62 analysis files (only the information amenable to quantitative analysis). The latter will be coded and aggregated into a single PARADOX file. This program will be used to ascertain changes through time in birth rates, mortality, and frequencies of in- and out-migration, and in the sex and age distributions of the pastoral population; to determine the frequency distribution by age, sex, cause, and year of post-infant mortality; to improve estimates of female fertility; and to determine variations in both male and female fertility and reproductive success. The database can be used to model population dynamics over a 50-year period, because it provides quantitative information about changes through time in all four population parameters--birth rates, mortality, in-migration and out- migration. Pastoralism, an adaptive strategy used by tens of millions of people, allows human use of land where low precipitation precludes reliable agriculture. Human ingenuity, together with environmental variability, leads to a range of pastoral strategies which are variably successful. At their core are the inter-related dynamics of human and livestock populations. This effort is part of the South Turkana Ecosystem Project, a long-term, multi-disciplinary study which attempts to apply the research standards established by evolutionary biologists, ethologists, and ecologists in a study of the ecology and behavior of a pastoral population. By providing information on social and personal as well as environmental factors which affect population parameters, this study also will allow predictions about the effects of social and environmental changes, and enable people to devise humane and ecologically wise development policies. The project furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigator's enhanced visibility as a role model on the host campus. The proposed activities which contribute to the second objective include: lecturing/teaching anthropology classes, participating in a seminar series, working with persons from different departments through the Populations Issues Research Center, and involving both undergraduate and graduate students in research through the study's data analysis.